Postdoctoral Research Fellowships in Chemistry

Dr. Kevin L. Schey has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Schey's doctoral degree was from Purdue University under the supervision of Professor R. Graham Cooks. Dr. Schey intends to continue his research at the University of Chicago under the sponsorship of Professor D. H.Levy. Dr. Schey's area of postdoctoral research will be the determination of dissociation rates as a function of internal energy deposited for peptide ions using laser desorption, ionization and excitation in a supersonic beam tandem time-of-flight mass spectrometer. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.